Nuclear Magnetic Resonance Facilities Enhancement

This award from the Chemistry Research Instrumentation Facilities Program will help the Department of Chemistry at the University of Louisville acquire a 300 MHz NMR spectrometer. The research activities to be supported include: (1) Sulfur-Centered Chemistry in Metal- Sulfur Complexes; (2) Cage Formation in Organophosphonates of Aluminum, Gallium, and Indium; (3) Synthesis and Confirmation of Oligosaccharides of Bacteria; (4) 1H NMR Studies on Paramagnetic FeIIFeIII and FeIIICoII Iron-Oxo Complexes of Polyimidazole Ligands; (5) Synthesis and Characterization of CO2-Bridged Bimetallic Complexes; and (6) the molecular basis of carcinogenesis, solution structures of peptide receptors, the synthesis NMR Studies on Peptides and Pseudopeptides. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers and catalysis, and in biology.2